Analysis on Fractals

Proposal Number: DMS-00140194
PI: Robert Strichartz

ABSTRACT

Research will be conducted in analysis on fractals.
Analysis on fractals studies the properties of functions
defined on fractals, centering on certain analogs of
differential equations. Over the past few years, the P.I.
has been actively involved in developing this area, in
particular establishing connections with more traditional
areas of mathematical analysis, including harmonic analysis,
analysis on manifolds, partial differential equations, and
numerical analysis. On a limited class of self-similar
fractals it is possible to construct operators that play the
role of the Laplacian, one of the central objects in
traditional analysis on Euclidean spaces and manifolds.
The work of the P.I. has led to a deeper understanding of
these Laplacians. At the same time he has studied certain
related nonlinear problems on these fractals, and has
worked on extending the scope of the theory to include a
wider class of fractals. This project will build on and
continue this work. A second area of research is the study
of harmonic analysis of fractal measures and functions with
fractal spectrum. Previous research has shown that for a
special class of fractal measures there is a generalization
of the theory of Fourier series. By duality this yields a
sampling theorem for functions whose spectrum lies in
certain special fractals. The proposed research will
attempt to find out what happens outside this narrow class
of examples.

Analysis on fractals is an emerging area with tremendous
potential in both pure and applied mathematics. Scientists
in diverse areas have realized that many objects in the
real world can be modeled by fractals, and mathematicians
have been exploring the properties of fractal sets and
measures. This project will enhance the mathematical
theory, both by making connections with more traditional
areas of mathematics, and by developing numerical tools
that could be used by applied mathematicians and scientists
in the future. This project includes collaborative work
with undergraduate students (REU) on computer experiments
to explore examples and generate conjectures. It is expected
that this experimental work will lead to deeper theoretical
understanding of the subject.